Faults and Subsurface Fluid Flow: Fundamentals and Applications to Hydrogeology and Petroleum Geology: Conference Travel Support

9706646 Moore This action provides partial support for a Penrose Conference entitled: Faults and Subsurface Fluid Flow: Fundamentals and Applications to Hydrogeology and Petroleum Geology to be held September 10-15, 1997 at Albuquerque and Taos, New Mexico.